Teaching Theoretical Stochastic Modeling Courses Using Industrial Partners and their Applied Problems

The objective of the project is to create an innovative learning environment that addresses the challenges of teaching stochastic modeling courses to undergraduate engineering and science students. The project develops four application-based modules to demonstrate the relevance of theory in practice and incorporates real-life applications into Industrial Engineering curriculum. The modules include visual media from industrial partners to present a problem with a web site that provides written module and reference material. The main topics covered in these modules include Brownian motion, reliability theory, queuing theory, Markov chains, and renewal theory.

Outcomes of this project consist of improved learning environment, exposure of students to technological tools, integration of advanced technology in the design and creation of the modules, and a curriculum package that is highly transferable to other programs and universities offering stochastic modeling courses.